Electro-optic, Superconducting Analog Signal Processing Devices

The area of superconductivity is receiving considerable attention because of the development of the recent high-Tc ceramic materials. While much work needs to be done to exploit these for electronic applications (for example the production of good quality amosphous films, high quality Josephson junctions, and other basic circuit elements) other materials of high quality and reasonable Tc, such as niobium oxide, have already been exploited to demonstrate various electronic circuits. The future of the superconducting electronics area looks exceptionally bright because of the future potential offered by these recent materials developments. The present proposal deals with an investigation of the microwave and optical properties of combined semiconductor and superconductor circuits. Although the panel felt it was out-dated by the recent developments, it recommended funding it with the realization that the perspective PI would have kept abreast of these and would be sensitive to their potential in the device areas he wished to pursue. Funding is recommended with $49,840 from lightwave technology and $20,000 from SSME.